US-Hungary Research on Computational and Mathematical Aspects of Multidimensional Image Processing

This U.S.-Hungary research project between Dr. Gabor T. Herman of the University of Pennsylvania School of Medicine and Dr. Attila Kuba of Kalmar Laboratory of Cybernetics, Jozsef Attila University, Szeged, Hungary, has the long-term objective to develop computational and mathematical procedures for the reconstruction of internal structures in a body from data collected by detectors (sensitive to some sort of energy) outside of the body and for the visualization and analysis of information contained in these reconstructions. These procedures are applicable in many areas of science and engineering, including: neuroscience, medical imaging, industrial inspection, geoscience, astronomy, and fluid dynamics. This project in radiology fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool resources in areas of strong mutual interest and competence.